Collaborative Research: Cosmogenic 3He Dating of Accessory Minerals

Technical Description

Cosmogenic isotopes such as 10Be and 26Al are widely used to determine the age and
exposure histories of landscape features. Such information is critical to understanding
the timing and rate of geologic processes such as active fault ruptures, glacial advances,
soil formation and erosion of mountain belts. However, the utility of these isotopes is
limited by the high cost and intense labor associated with producing a single
measurement. This project proposes development of cosmogenic 3He as a dating tool in
common accessory mineral phases such as apatite, sphene and zircon. If successful, this
technique will be unique in several respects. First, it will allow rapid and inexpensive
cosmogenic dating of a wide range of rock types, thus increasing the number of samples
that can be dated in a single study. Second, because 3He is stable and has a very high
production rate, it may prove useful in combination with other cosmogenic nuclides to
address problems such as paleoaltimetry, ancient exposure and burial histories (100 my
time scales), and dating of archaeological sites and artifacts.

Several technical challenges need to be overcome before 3He in apatite, sphene and
zircon can be used as a cosmogenic dating tool. First, it is necessary to develop
analytical procedures such that the measurement of small amounts of 3He in the presence
of large quantities of radiogenic 4He is not hampered by the "tailing" of low energy 4He
ions onto the 3He peak, or by space charge effects at high 4He pressures. The former is
likely not a problem based on the demonstrated abundance sensitivity at mass 3, and the
latter will be addressed using a "spike" of standard gas inlet during the measurement of
an unknown to calibrate the instrument at that He pressure. A second challenge is to
verify the production rate of 3He, which will be done using samples of known exposure
age from glacial moraines in the Sierra Nevada and Nepal Himalaya. Implicit in this task
is identifying and correcting for non-cosmogenic sources of 3He such as inheritance from
fluid inclusions and production via 6Li(n, alpha) + time -> 3He.

Non-Technical Explanation

Determining when rocks first appear at the Earth's surface is an important question in
many Earth Science disciplines. For example, the boulders deposited when a glacier
retreats provide an important record of past climate change. The "surface exposure age"
of these boulders, the time when they were first deposited, can be determined by
measuring the buildup of unusual isotopes produced by cosmic rays interacting with the
elements of the uppermost tens of centimeters of the rock. This proposal seeks to improve
existing methods of "surface exposure dating", using the appearance of a rare isotope of
helium in several common minerals. The overarching goal is to develop a technique that
is broadly applicable and inexpensive and which may lead to improved understanding of
the timing and rates of processes that modify Earth's surface.